Presidential Young Investigator Award/Spectroscopy and Reactivity of Molecular Clusters

Dr Johnson is carrying out a program of research involving the determination of structural information on ionic clusters. He is using stimulated Raman spectroscopy as a general means for vibrationally exciting the clusters where the excitation is detected by monitoring the photodissociation products. He is also extending cluster ion studies to probe the detailed dynamics of chemical reactions. The approach relies on trapping reactants together in the unreacted form of a cluster ion, cooling the cluster to a local minimum in the potential energy surface, and then triggering the reaction in a controlled way using selective vibrational excitation. As a future direction he intends to solvate the cluster before triggering the reaction to investigate the detailed way in which surrounding molecules affect the reaction dynamics. This work is important because clusters are at the focus of interest in several rapidly advancing technologies, including information recording, industrial catalysis, photography, and microelectronics, and as models for new materials. In his research program Dr. Johnson is initiating a new avenue of research on semiconductor materials, involving clusters of mixed transition metal and semiconductor clusters.